POWRE: Integrating Information Resources for the Canopy Scientist a Model System for the Ecology and Database Research Community

EIA-0075066
Cushing, Judith B.
Evergreen State College

POWRE: Integrating Information Resources for the Canopy Scientist a Model System for the Ecology and Database Research Community

This work extends an ongoing project that focuses on building database facilities for forest canopy scientists into research, leading towards a model for ecologists and computer scientists. The grant will be used to extend a six-month sabbatical into fifteen months of intensive research and development experience. Meanwhile, integrating relevant computer science research, efforts will be made to build an effective community-wise database for an emerging ecological field. The PI will also explore the use of access- and workflow-oriented mediators, integrating metadata with data, data validation, data transformation, schema representation and integration using XML. The focus will be on metadata acquisition and spatial transformations for data integration.